Conference on Specificity and Crosstalk in Plant Signal Transduction being held on January 22 - 27 2002: in Tahoe City, California.

Signal transduction networks are essential in eukaryotes, allowing cells to perceive and
respond to continuous changes in extracellular conditions. Multiple signaling pathways
co-exist in individual cells controlling essential responses, including hormone signaling,
mitogenesis and apoptosis. Understanding the molecular mechanisms by which signaling
pathways cross talk with one another or by which specificity is conferred within a complex
signaling network is an area of present intensive research in eukaryotic biology. It has
long been recognized that most aspects of plant growth and development are regulated by
networks of signaling mechanisms rather than linear signal transduction pathways.
Furthermore, most plant cells express receptors for the six major classes of plant
hormones and additional light and pathogen responsive receptors and need to process each
pathway, while also making use of cross talk among these pathways. Recent
interdisciplinary studies using new genetic, biochemical and genomic approaches have led
to rapid and accelerating progress in understanding mechanisms that mediate cross talk and
specificity in plant signal transduction.

Hormones, light, pathogens and stress stimuli trigger signal transduction cascades that
are essential for growth, development and survival of plants. The Keystone Symposium on
Specificity and Cross Talk in Plant Signal Transduction will be focused on presentations
on newly recognized reception and transduction mechanisms in these responses. The
organizers have set up important avenues that will ensure diversity among presenters at
the conference and are requesting funds, that will enable travel support for graduate
students, post doctoral associates and selected speakers, towards achieving the goal of
diversity and multidisciplinarity. The goal of the meeting will be to highlight major
advances in this rapidly moving field and to synthesize an integrated understanding of
which mechanisms mediate cross talk among pathways and which mechanisms allow specific
modulation of plant growth and developmental responses. Understanding of these mechanisms
is essential for manipulation of plant growth and development and for developing new
biotechnological applications, that will ultimately benefit human health.